Bridge Calculus Consortium Based At Harvard

9352905 Hallett The Calculus Consortium based at Harvard University, with funding from the National Science Foundation, has developed, tested and disseminated an innovative single variable calculus course. The course is currently being used at over 125 colleges around the country and abroad. In this project, the effort is being expanded to include precalculus and the second year of calculus. A major component of the proposed project is dissemination. Information about the Consortium's single variable materials has reached a large number of faculty at diverse institutions. The dissemination effort for the proposed project is being modeled on the workshops, minicourses, newsletters, test sites, and networking that have proved successful in the current project. ***